Workshop on Nanoscale Systems, Dynamics and Control; June 3, 2003; Denver, CO

The purpose of the workshop is to bring together leading researchers from many different
disciplines in the current trend, challenging unsolved problems, and applications of nanoscale
systems, dynamics and control as a new emerging field. Nanotechnology which is aimed to
control the materials and processes at the molecular and nanoscales has become one of the critical
technologies of this century. Scientists and engineers are focused on solving basic and
technological problems, and system based research is still very immature. Modeling, design,
integration, and control of nanoscale systems is of vital importance in a host of applications
ranging from nanomanufacturing, micro/nanorobotics, and material characterization, to the design
and control of devices for biotechnology, information technology, and medical applications. The
workshop will address both the state of the art and future directions of the field with very
interdisciplinary presenters and audience.
Invited speakers with different areas of specialty would introduce the state-of-the-art issues,
achievements and open challenges in their topics which include scanning probe microscope
dynamics and control, nanomanufacturing system monitoring and control, nanorobotics,
nanoscale system integration, nanomanipulation and nanoassembly, bionanosystems, controlling
and directing self-assembly, nanopositioning systems and control, biomimetic and smart
nanoscale systems and structures, nanoscale physics, modeling of nanoscale dynamics and
systems, novel nanoscale system applications in biology, medicine, information technology,
materials, etc., hard disk storage systems using nanoprobes, advanced man-machine user
interfaces for nanorobots, and etc.
A final report after the workshop will be submitted to the NSF which could be used for defining
current status, open research challenges, funding guidelines, possible initiatives, etc. in the
nanoscale systems, dynamics and control area.